RIA: Robust 3D Object Recognition Using Uncertain 2D Image Data

9309100 Camps This is the first year of a three-year continuing award. The research uses techniques from robust statistics coupled with a Bayesian approach, to develop mathematical models for robust 3D object recognition from uncertain 2D image data, and to develop matching schemes that use these models to robustly recognize and compute the pose of an object, while providing a measure of confidence level for the hypothesis made. The results should enable development of computer vision systems that can cope with imperfections in real input data, due for example to fragmentation or sensor noise, without resorting to use of ad hoc heuristics or trial-and-error procedures. Such systems should offer more robust performance and significant reductions in development cost.